Heat Transfer Enhancement by Oscillatory Separation in Laminar and Turbulent Flow in Grooved Channels and Cylinder Arrays

This reseach is concerned with heat transfer enhancement in oscillatory separated flow. The objective is to exploit the unsteady characteristics of fluid flow in heat exchangers so as to promote the thermal effectiveness. The work is a continuation of research employing numerical and experimental approaches to examine the parametric dependence of resonance-induced augmentation in both subcritical (stable) and super-critical (intrinsically unsteady) flows. Experimental and numerical studies, the latter based on direct simulation using the spectral element method, will be extended to the transition and fully turbulent regimes. Emphasis will be placed on understanding and predicting the important phenomenon of heat transfer enhancement due to modulatory excitation of natural and undamped oscillating modes present in separated flows.